Collaborative Research: Petascale Simulations of Core-Collapse Supernovae and Hypermassive Neutron Stars

Core-collapse supernova explosions from massive stars and collisions of neutron star mergers are among the most energetic phenomena in the universe. In these explosions and collisions, the key chemical elements of live (oxygen, carbon, iron etc.) and all heavy elements, including the rare earths metals, are synthesized and expelled into the interstellar medium. The goal of this PRAC project is to simulate core-collapse supernovae and the remnants of neutron star collisions at unprecedented physical detail. The investigators will use high-resolution three-dimensional simulations that include general relativity, fluid dynamics, radiation transport of neutrinos, magnetic fields, and a sophisticated description of the properties of the ultra-high density matter present in the cores of supernovae and neutron star collision remnants. The simulations will yield a deeper understanding of the processes occurring as a star turns from collapse to explosion and will elucidate the role of magnetic fields in both core-collapse supernovae and in the evolution of collision remnants. This will, in turn, yield better predictions for signals (in gravitational waves, neutrinos, and electromagnetic waves, and synthesized elements) from these phenomena. Astronomical observations can then be used to test theoretical models and constrain present uncertainties in nuclear physics and astrophysics.